Purchase of Computational Chemistry Resource for the University of Memphis

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program and the Office of Multidisciplinary Activities (OMA) will help the Department of Chemistry at the University of Memphis purchase a distributed-memory, eight-processor computer, two graphics workstations, and six workstations. This equipment will enhance research in a variety of areas including catalytic hydrocarbon conversion, nonlinear optical materials, electrochemical interface phenomenon, and the feasibility of building `computers` from DNA. A network of fast, modern computer workstations is a new way to satisfy the computing needs of chemistry departments. Such a `computer network` also serves as a development environment for new theoretical codes and algorithms, provides graphics and visualization facilities, and supports research in state-of-the-art applications of parallel processing.